Estrogen, Cholinergic and Gabaergic Activity, and Memory

Recent studies suggest that estrogen can influence cognitive processes.
It is hypothesized that these effects are due, in part, to the ability of
estrogen to enhance the functional status of cholinergic projections to
the hippocampus and cortex by affecting cholinergic and GABAergic
neurons within specific regions of the basal forebrain.

The proposed studieson rats will use a combination of biochemical,
pharmacological, and behavioral techniques to examine the effects of
estrogen replacement on basal forebrain cholinergic neurons and
corresponding cognitive processes. One major goal is to test the
hypothesis that estrogen replacement can reduce cognitive impairments
associated with the loss of basal forebrain cholinergic neurons. This
goal will be accomplished by examining the ability of estrogen
replacement to reduce impairments in learning, memory and attentional
processes produced by selective cholinergic lesions in rats. Another
major goal is to examine the ability of estrogen to reduce
GABA-receptor-mediated effects on cholinergic activity. This will be
accomplished using an in vivo microdialysis approach and examining the
ability of estrogen to prevent decreases in acetylcholine release
produced by lorazepam.
These studies will help provide an integrated, mechanistic account of
how estrogen replacement influences interactions between cholinergic and
GABAergic systems in the basal forebrain and hippocampus, and will help
to define potential mechanisms by which estrogen replacement can reduce
cognitive impairments associated with alterations in cholinergic and
GABAergic activity.